Michigan Statewide Systemic Initiative for Mathematics and Science

The Michigan Statewide Systemic Initiative in Mathematics and Science (MSSI) will implement a comprehensive transformation of science and mathematics education by coordinating policy initiatives already in place with curricular, leadership, and partnership initiatives to support school-based change in science and mathematics education. Michigan recently passed Public Act 25 (PA 25) which provided for the development of a State Core Curriculum, a process to review and revise policies and programs that inhibit educational change, and a process to encourage school-based change through State accreditation. To further support school-based change, target disadvantaged school districts, and transform science and mathematics education Michigan plans five connected interventions: 1. Develop a state vision statement for mathematics and science education, circulate it widely, revise it, and obtain endorsement from the MSSI Steering Committee, the State Board of Education, and a range of stakeholder groups. 2. Design and carry out a systematic review of existing legislation and state policies, programs and regulations, that strengthen or impede the vision. The review will be widely shared with district, state, and association personnel, and a report on the results will be submitted to the State Board of Education, Governor's office, and key legislators. The recommendations will be reviewed annually to determine the extent of implementation. 3. Create Models of Effective Learning in targeted school districts. This initiative will focus on economically disadvantaged and extreme rural districts, along with other districts interested in reform in mathematics and science education. Twenty-five to fifty community coalitions will be formed in participating school districts and the MSSI will provide technical assistance to them. The Models will generate new knowledge about creating successful community coalitions to reform mathematics and science education. 4. Reform teacher education programs to bring them into line with the state's vision for mathematics and science education. A draft framework that lays out this direction will be developed during the project's first year. An incentive plan to implement the recommended reforms will be implemented in years 2 - 5. 5. Develop and coordinate state-level staff development to support mathematics and science education reform consistent with the vision statement. Develop a coordinated plan to stimulate and support local district efforts in considering, exploring, and implementing knowledge employed and generated by this project and other state-level reform activities. 6. Create an evaluation plan that will determine the success of the project's proposed outcomes as well as the success of other state-level activities to reform mathematics and science education. A state indicator system for mathematics and science education will be developed.